Acquisition of Helicopter Services for the United States Antarctic Program (USAP).

ABSTRACT

Weber
OPP-0634685
Through a competitive bidding process managed and coordinated by the Division of Acquisition and Cost Support (DACS), Petroleum Helicopters Inc. of Lafayette, LA. has been selected as the provider of light and medium lift, rotary-wing flight services to the NSF Office of Polar Programs. PHI will operate a fleet of up to four helicopters from McMurdo Station, Antarctica and camp locations in the Antarctic from October to February of each year. The base contract is for four aircraft two light (Aerospatiale B2) and two medium (Bell BH-212) rotary-wing aircraft for two years. This contract also contains provisions for the addition of aircrew and maintenance personnel, as well as additional aircraft and days of availability, as required. The contract also contains negotiated pricing for the incorporation of Automated Flight Following avionics and integrated GPS.

The value of the contract is estimated at a not-to-exceed level of $34,076,750 over an approximately seven-year period consisting of two years base award with five one-year option (incentive award) periods.

The Department of Interior, National Business Center, Aviation Management Directorate (AMD), through a memorandum of understanding with the National Science Foundation, Office of Polar Programs, provides support for aviation-related activities in support of United States Antarctic Program (USAP) activities in Antarctica and will manage and administer this contract on behalf of NSF. All subsequent funding actions against this award will be made through the Department of Interior/AMD Award.

The purpose of this nominal award of $1 is to: 1) bind the contract with PHI, and 2) establish the contract in the NSF financial accounting system for purposes of future awards that will be made over the period of performance of the services.